Penrose Conference: Application of Strain Analysis, From Microstructures to Orogenic Belts

This action provides partial conference support for a Penrose Conference entitled "Applications of Strain Analysis, from Microstructures to Orogenic Belts" to be held at Liscomb Mills, Nova Scotia, September 8-12, 1992.